1995 Gordon Research Conference on Atmospheric Chemistry; Newport, Rhode Island; June 18-23, 1995

9510266 Gordon The PI is organizing a Gordon Research Conference on Atmospheric Chemistry in Newport, RI on June 18-23, 1995. This Gordon Research Conference is one of the major meetings in this field. This year, the conference theme will be Aerosols - an extremely timely topic of intense interest in both tropospheric and stratospheric chemistry. Aerosols have also been identified as being the key uncertainty with respect to anthropogenic influences on climate. The meeting will be attended by both established researchers and young scientists, among them the participants of the preceding ACCESS meeting. ***